A Low Power Underwater Optical Communication System for Seafloor Sensors

Tivey 0527466
This project involves the construction of a robust, deep ocean capable, low cost and low power underwater communications system based on optical communication technology. A light-emitting diode transmitter will be used and a photocell receiver with a communication protocol based on the Infrared Data Association standard. A large diverse group of instruments can easily be fitted with optical interfaces for rapid and efficient interrogation of seafloor instruments.